Postdoctoral Research Fellowships in Chemistry

Dr. L. Rene Corrales has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Corrales' doctoral degree was from the University of California at San Diego under the supervision of Professor John C. Wheeler. Dr. Corrales intends to continue research at the University of Texas at Austin under the sponsorship of Professor Peter J. Rossky. Dr. Corrales' postdoctoral research will be the development and application of a general theoretical model to describe the molecular structure of covalently bonded liquids and amorphous solids. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.